Microcomputer-Based Laboratories (MBL) for Two-Year College Introductory Physics Courses

The intent of this project is to (1) adapt and refine for the two-year college environment existing microcomputer-based laboratory (MBL) curriculum materials and (2) to extend this area by developing additional MBL curriculum pieces that provide a more complete collection of laboratory activities for introductory physics laboratories. The targeted laboratories include the laboratory from the calculus-based course, trigonometry-based course, conceptual-based (liberal arts) course, and the technical physics (for technical/vocational students) course. These curriculum pieces are being initially tested at two different two-year college laboratories and then tested further at several other two-year college sites.